U.S.-Korea Cooperative Research on Properties, Transforma- tion Characteristics and Shape Memory Behavior of Grain Re- fined Copper-Zinc-Aluminum Alloys

This proposal requests funds to permit Dr. C. M. Wayman, Professor of Metallurgy, University of Illinois, to pursue with Dr. Myung-Chul Shin, Head, Precision Metals Research Laboratory, Korea Advanced Institute of Science and Technology, for a period of 24 months, a program of cooperative research on the properties, transformation characteristics, and shape memory behavior of grain-refined copper-zinc-aluminum alloys. These alloys are typically brasses, containing about 70% copper, by weight, and 2-8% aluminum. They demonstrate the shape memory effect through which an alloy deformed at some lower temperature completely recovers its initial undeformed shape upon heating to a higher temperature. The research will involve the application of grain refinement techniques such as zirconium doping to reduce grain size so as to improve formability and resistance to fatigue. Transmission and analytical electron microscopy will be used to examine presumably zirconium-rich second phase particles within the grains and along grain boundaries, while the chemical composition of the particles will be determined by analytical electron microscopy microanalysis. The degree of coherency, strain fields, and other mechanical aspects of the particles will be determined using transmission electron microscopy. Macroscopic aspects of the research will include characterization of the alloys in terms of grain size versus fatigue, transformation temperatures, and the extent of shape memory in the grain refined alloys. This research is important because of the broad range of interest in the applications of shape memory alloys to controls, fasteners, electronic systems, medical prosthetics, actuators, and other devices for transportation, computers, machinery, agriculture, energy, building, and other manufacturing groups. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. The U.S. and Korean collaborators are highly respected scientists with extensive research experience and productive publication records in the field of the proposal.